Contrasts in Styles of Cretaceous Deformation, Northwestern Mexico

Contrasting styles of deformation to some degree are commonly exhibited along strike in orogens despite being developed in basically the same tectonic setting. This proposal will investigate a particularly abrupt change in Cretaceous deformation style along the western cratonic margin in Sonora, Mexico that is represented by the ductilly deformed crystalline rocks in northwestern Sonora and gravity-driven low-temperature slide masses in eastern Sonora. Deformation in both areas is the consequence of Cretaceous convergence, and this study is expected to illuminate the response of the crust to the tectonism. Results may guide research in similar orogens showing along-strike changes in tectonic style.